Action Math and Physics Laboratory Experiences (AMPLE) An Enrichment Program to Develop Young Scholars in West Virginia

9353854 Frye Fairmont State College will continue its three-week commuter, Young Scholars Early Alert Initiative Project in physics and mathematics for thirty six students entering the 11th and 12th grades. The summer component consists of lab classes in physics and mathematics. Students work with manipulatives,calculators and real world problems in the math component. Physics laboratory classes focus on research related to energy and mechanics. Students participate in workshops related to their individual research efforts during the fall and spring follow-up sessions. College orientation, career exploration and ethics of science activities complete the program. ***